Solvable Models of Nonlinear Dispersive Waves

Mathematical equations describing waves in fluids, plasmas, and optical fibers
are extremely complex. Usually they can be solved only on high speed computers.
However, it is often possible to approximate these complex problems with simpler
equations whose solutions can be written in explicit analytical form.
Such equations are called ``solvable models'', and have been known for years.
An example is the Korteweg-deVries equation, which models waves of the
surface of water and acoustic waves in plasmas. It was discovered in
1877 by Boussinesq, but the derivation was not rigorous. Numerical
experiments on the ion acoustic plasma equations have shown convincingly
that this approximation is robust - that is, that the validity of the
model extends far beyond the small parameter range for which it was
formally derived. This award will support a mathematically rigorous proof
for this conjecture. The analysis of other such models will also be
carried out. Among these are model equations for shallow water waves that
were proposed by Camassa and Holm of Los Alamos National Lab, and solvable
models that are associated with Hele-Shaw flows (flows of two immiscible
liquids between two plates).

Many physical phenomena have complicated mathematical descriptions that can
be reduced to simpler models in certain limiting cases. An example is the
description of surface waves in an ocean. The full description involves a
complicated system of equations that has to be solved on a supercomputer
in each special instance of the problem. However, in the important special
case of shallow water and unidirectional waves, a much simpler equation has been
proposed as an approximation. While this simpler equation can be
studied in great detail and much more thoroughly than with any numerical
simulation, the question arises for which physical parameters (in this case water
depth and wave height) the approximate description is indeed correct. These
questions have in the past led to serious scientific disputes, and there are
very few cases where they have been resolved by rigorous mathematical analysis.
Their resolution is very desirable for purely intellectual reasons and to
validate numerical simulations. The award will support work to establish
the validity of such reduced equations in a related situation (waves in plasmas)
and the study of other reduced equations that describe fluid flow phenomena.